Acquisition of: A Cytophotometry Facility for Direct Measurement of Nuclear DNA Content

ABSTRACT It is our intention to establish a cytophotometry facility in the St. Olaf Biology Department for both research and training purposes. Such a facility requires a microscope equipped with a light source and filters that allow for absorbency measurements at two wavelengths, a microscope image processor, and a photometer. A cytophotometer will allow us perform accurate, quantitative measurements of nuclear DNA content. This capability will greatly expand upon our research efforts to analyze nuclear and chromosomal behavior during both normal and aberrant conjugation in the ciliated protozoan Tetrahvmena thermophila. Specifically, we will be better able to characterize the nuclear behavior of conjugation mutants that affect both meiotic and mitotic divisions, as well as the differentiation of newly formed polyploid macronuclei.